Engineering Research Equipment Grant: Surface Roughness Measurements of Magnetic Recording Heads and Media

Many research projects related to the measurement of surface roughness are currently in progress at the University of California, Berkeley. There is a need to upgrade the measuring equipment currently in use for four of these projects: surface roughness measurement of magnetic recording heads and media, acoustic emission from manufacturing processes, abrasive and erosive wear in metals and ceramics, and wrinkle development in sheet metal forming.